Oceanographic Technical Services 2003-2005, R/V Savannah

0308702
Tesh
This 3-year award to Skidaway Institute of Oceanography in Georgia provides support for technical services during NSF-funded programs on R/V Savannah, a 92' general purpose research vessel operated as part of the University-National Oceanographic Laboratory System (UNOLS) research fleet. Skidaway will provide one shipboard technician on most cruises of R/V Savannah to support research and to maintain, calibrate and provide for qualified users items from their pool of shared-use research instrumentation.
***